Georgia Topology Conference

The Georgia Topology Conference is an annual conference that has been organized by several generations of topologists at the University of Georgia for well over forty years. The conference has focused on many areas of topology including hyperbolic geometry, laminations, foliations, 4-manifolds, 3-manifold invariants, symplectic topology and contact topology. The conference features emerging areas of research in topology. Typically our conferences feature a several senior researchers and a large group of young researchers, mostly recent Ph.D.'s and some graduate students. This format, with its attention to emerging areas of research, helps this conference play a significant role in both disseminating the newest research and preparing graduate students and postdocs for a successful research career in mathematics. We encourage and fund participation by members of underrepresented groups. Our participants and organizers have included many women.

Topology can be viewed as the study of the structure and shape of the space we live in. As such there are deep relationships between topology, geometry, and physics. It is this diversity of approaches to central problems that has always energized research in topology.
More information can be found on the conference web-site
http://www.math.uga.edu/~topology/